Fast PEGASUS

A prototype of a new generation of fast acoustic current profilers using a set of surface-mounted Global Positioning System (GPS) transponders for navigation will be developed and tested. This design should provide better accuracy and vertical resolution than existing designs and improve our understanding of boundary currents.